RIA: Clock Distribution Design and Register Allocation in Pipelined Systems with Application to Behavioral Synthesis

In this research effort, the effects of pipelining on the performance of a high speed synchronous digital system are investigated. Pipelining, coupled with the design of the clock distribution network synchronizing the signal flow between each data path, can significantly effect system performance. Timing characteristics of the clock distribution network are analyzed in terms of how system performance can be either enhanced or degraded. A graphical design paradigm relating latency and clock frequency as a function of the level of pipelining are enhanced to further study the performance of a synchronous system. Specifically, the following areas are investigated: 1) the application of localized clock waveform lead/lag relationships to pipelined data paths so as to demonstrate the utility of these relationships and to understand their limitations for increasing clock frequency in deeply pipelined systems, 2) the investigation of the effects of retiming and register allocation/scheduling on pipelined systems for application to behavioral synthesis and analysis, 3) the application of the aforementioned graphical approach to the analysis of clock frequency/latency tradeoffs in structures containing feedback, thereby providing a structured theoretical basis for designing and implementing recursive circuit structures, and 4) the investigation of the effects of process parameter variations on system level performance.